GMM Model Averaging

Intellectual Merit
Faced with model uncertainty, model selection methods are commonly employed in applied empirical
research. Improved estimation and inference can be obtained by model averaging, replacing the
discontinuities implicit in selection by smooth averaging. An econometric methodology for model
averaging is undeveloped. Bayesian model averaging methods have been developed, but frequentist
methods are missing, with the notable exception of the recent contribution of Hjort and Claeskens (2003).
The latter contribution is concerned with likelihood-based models. There are no model averaging
methods appropriate for the Generalized Method of Moments (GMM), which is arguably the most
common estimation framework in econometrics.
The PIs proposal is to develop model averaging methods for GMM. The PIs follow Hjort and Claeskens (2003)
by using a local-to-zero parameterization to develop an asymptotic mean-square-error calculation which
contains a bias-variance trade-off. Using this framework, the PIs can calculate the asymptotic MSE of modelaveraged
GMM, and propose bias-corrected estimates of the MSE. Estimates of the model average
weights are functions of these MSE estimates, and are computed using quadratic programming. The
result is the PIs proposed GMM model average estimates. In simulations, these estimates are found to possess
good finite sample MSE properties.
The research suggested in this proposal is at a preliminary stage of development. The theory needs to be
fully worked out. Broader conditions and assumptions need to be incorporated to make the analysis more
broadly applicable. Model averaging can be extended to include average over instrument sets (averaging
over moment conditions). The theory should also be extended to incorporate large instrument
asymptotics. A particularly thorny issue will be inference. Similar to model selection, model averaging
produces estimates whose sampling distributions cannot be consistently estimated. Robust inference
methods will need to be developed which are sensitive to this issue. These topics and issues will be
explored in the execution of this proposal.
Broader Impacts
Model averaging methods are growing in popularity in applied econometrics. The proposed methods will
have broad potential empirical application. It is expected that the theory and methods uncovered by this
research will find productive use by applied economists both in academics and the public sector.